Mapping Class Groups, Teichmuller Spaces and Low Dimensional Topology

Abstract

Proposal: DMS-9803497
Principal Investigator: Howard Masur

Masur will work on several topics involving the mapping class group and
Teichmuller theory. He will finish his joint work with Yair Minsky on
the combinatorial group theory of the mapping class group. This work
includes solving the conjugacy problem and finding a biautomatic
structure. The method has been to use the hyperbolic structure of the
complex of curves. Masur will begin a study of the large scale or
asymptotic geometry of the mapping class group. This study is related
to the study of the quasi-isometries of Teichmuller space. Masur will
continue his work on the representation theory of the mapping class
group. He will study certain functions called conditional negative
kernels, with the goal of proving that the group does not have Kazhdan
property T. He will also study whether surface groups admit
homeomorphisms to the mapping class group, which is related to the
study of surface bundles over surfaces, a problem in 4-manifold
theory.

The field of surface topology is the study of those properties of
surfaces that do not change under deformations. The field interacts
strongly with other disciplines within mathematics, such as complex
analysis, and with outside disciplines such as physics. The mapping
class group, which is the group of self mappings of the surface, is a
fundamental object of study. Many mathematicians over the years have
studied the group from a variety of viewpoints. Recently, powerful
new geometric tools have been introduced to study groups, which are
the objects of symmetry in mathematics. The principle investigator is
working to bring these new geometric ideas into the study of surfaces
and the mapping class group.